Liquid Sodium Models of the Earth's Outer Core

Understanding the origin and dynamics of the Earth's magnetic
field is the primary goal of this research. Laboratory
experiments conducted in liquid sodium are used to reach
Earth-like parameters to study fluid flow-magnetic field
interactions. Understanding the role of turbulence, global
rotation, and magnetic forces on the Earth's core are primary
issues addressed in the research. This project includes
working in collaboration with researchers involved in
simulations of the geodynamo, in order to assist in
benchmarking computational models. This research also seeks
to broaden its impact through the training of young
scientists, and through public outreach activities.
Undergraduate and graduate researchers play a critical part
in the project scientific activities. The mentoring of
future scientists is an important part in this experimental
research. Through lectures, participation in television
documentaries, and by articles in scientific news magazines,
this project seeks to improve the public appreciation and
knowledge of science relating to the geodynamo and geophysics
experiments.Lathrop